Synchronization in Concurrent Algorithms

The objective of the research is to investigate synchronization in concurrent - perhaps distributed - algorithms. Such algorithms involve a number of independent tasks, or transactions, which synchronize with one another periodically. Unfortunately, synchronization impairs performance since tasks must wait for one another. Techniques for improving performance by reducing synchronization will be investigated and the structure of an asynchronous algorithm as it relates to synchronization will be modelled. A major cause for synchronization is the need for concurrent tasks to access shared data. Data is frequently characterized by integrity constraints and it is generally required that these be true in all states viewed by the tasks. The research divides into three related problems. The use of semantics to remove the requirement that updates to shared data be performed atomically will be investigated. A strategy for decomposing updates into smaller units which can be interleaved with the execution of other tasks, hence reducing synchronization delays while maintaining integrity constraints is being studied. The tradeoff between increased concurrency and integrity constraint violation is under study. Relaxing synchronization to the extent of permitting violations but not allowing the state of the data to deviate too far from one in which the constraints hold is being studied. Once again the emphasis is on improving the performance of asynchronous algorithms which access shared data. Finally, the structure of an asynchronous algorithm as it relates to synchronization will be studied to see whether algorithms can be compared on the basis of the amount of synchronization involved.